Undergraduate Mathematics with a Laboratory Component

A computer laboratory equipped with IBM PS/2 model 55SX computers running symbolic algebraic software is permitting students to actively "experiment with mathematics" and gain insights and understanding that are not possible with textbooks alone. s' use. This project allows students tackle more realistic problems and to learn mathematics interactively.